Titanium Nitride Reaction Mechanism

Titanium hydride can be reacted with ammonia in the presence of various metal catalysts to form titanium nitride. When the kinetics of this reaction were analyzed by thermogravimetric analysis, the weight change versus time curves showed a number of reproducible discontinuities which did not correspond to expected kinetic behavior. Earlier Phase I research indicated that the discontinuities were due to the effects of multiple catalysts. A preliminary kinetic mechanism was proposed which will be more fully investigated in this Phase II research. Various metal catalysts will be analyzed for their effectiveness not only in promoting the nitriding reaction but also for catalyzing the reaction of titanium hydride with methane. Contact angle measurements for various nickel alloys on titanium nitride were evaluated in Phase I. In Phase II, these measurements will be extended, and the nickel alloy-titanium nitride interface will be investigated to determine the causes for enhanced wetting. Cermets of nickel alloy and titanium nitride will be made by cold pressing and sintering. The physical properties of the cermets will be correlated with contact angle measurements, as well as other microstructural features. Premium high speed steel and cemented carbide cutting tools are currently coated with combinations of titanium nitride, titanium carbide, and alumina. Titanium nitride is the most popular coating for the actual wear surface. With feasibility established in Phase I, the opportunity exists in Phase II to correlate wetting with physical properties and confirm the catalytic mechanism for producing titanium nitride. A fundamental understanding and improvement of the synthesis and wetting of titanium nitride by a nickel binder is expected to lead to a cermet with significantly enhanced physical properties. Such a cermet may replace tungsten carbide-cobalt tools in some applications, reducing the dependence of the United States on imported cobalt.